Purchase of a Nuclear Magnetic Resonance Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most important tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research. The Department of Chemistry at Arizona State University will use this award from the Chemistry Shared Instrumentation Program to help acquire a high-field NMR spectrometer. Included among the areas of chemical research that will be enhanced by the acquisition are the following: 1) Transition metal complexes 2) Electron and energy transfer in photosynthetic bacteria 3) Photochemistry of pyrimidine dimers 4) Synthesis and reactions of iron acyls derived from optically active amino acids 5) Structure and function of toxic proteins 6) NMR investigations of of meteoritic macromolecular carbon 7) Hydroxy polyethers as model polysaccharides 8) Metal-ammonia-intercalated transition-metal dichalcogenides 9) High surface area silica catalyst supports